Multidimensional Signal-Processing for Enhanced Electro- magnetic Geotomography

This project builds on an established state-of-the-art in electromagnetic geotomography used for imaging buried geo- structures in mining, exploration, geotechnology, security, and environmental waste management applications. The study focuses on specific multidimensional signal-processing issues in the reconstruction of images from through-rock electromagnetic transmission measurements, and covers image fidelity quantification, tomography algorithms for combined attenuation- phase-frequency measurement data, and space sampling strategies in site surveying and in image construction.